Program and storage transformations for improving memory performance

Jagannathan Ramanujam, Louisiana State University

The performance of programs on modern processors depends critically on
how their memory access characteristics can be matched to the
multi-level memory hierarchy commonly used in these processor
architectures. The goal of this project is derive compiler
transformations to improve the memory performance of scientific
computations. In particular, a combination of program restructuring
and memory layout transformations of data will be derived to handle a
larger class of programming constructs than perfect nests and regular
memory accesses. This project will study several important problems,
including: (a) strategies to integrate tiling and data shackling in
order to effectively orchestrate the movement of data through memory
hierarchies; (b) issues in the design of a sophisticated
locality-enhancing compiler for regular and irregular codes; (c)
extensive experimental evaluation of locality-enhancing
transformations; (d) insights on the interaction between techniques
for exploiting instruction-level parallelism and register-level reuse;
and (e) possible insights on improvements in the design of memory
systems for applications, including the design of application-specific
cache architectures. Most importantly, these compiler techniques will
allow users to easily exploit the enormous computation power in modern
processor architectures.